Quantifying Adsorption of Peptides at Gas-Liquid Interfaces

Fast atom bombardment (FAB) mass spectrometry will be evaluated as a method to measure surface area excess concentration at the gas- glycerol interface of peptides. Surface concentrations measured using FAB MS will be compared to those measured using the radiotracer technique, the only method currently in use to directly quantify the concentration of proteins and peptides at gas-liquid phase. If successful, the first highly accurate data will be acquired describing the behavior of peptides at N2-glycerol and vacuum-glycerol interfaces. The behavior of peptides and proteins in non-aqueous solvents is of increasing importance because of the chemical and biotechnology studies and application of enzymatic synthesis in non-aqueous solvents. In addition to the development of a new method, this research will add knowledge about the fundamental mechanism of FAB ionization. This research will be carried out by a chemist and two chemical engineers in consultation with a protein biochemist.